Imaging the Effects of Psychosocial Stress on Cognitive Performance

Stress and evaluations of performance are commonplace in domains such as education, yet
surprisingly little research in humans has investigated the effects of stress on cognition. Although
academic success is often attributed to innate ability, how individuals respond to situational factors, such
as stress, may have an even greater influence on cognitive performance. Thus, it is particularly important
to investigate how stress influences the neural processes supporting cognitive performance. Research
suggests that too much stress may cause an increase in distraction and an accompanying shift away from
engagement of the brain's cognitive control network (CCN), which guides attention outwardly toward the
task, toward greater engagement of the default mode network (DMN), which guides attention inwardly. As
cognitive control is often required to maintain high performance, especially on difficult tasks, this shift may
result in a decrease in task performance. The project will investigate how stress affects levels of the stress
hormone cortisol as well as brain activity in the CCN and DMN during the performance of a difficult task
requiring cognitive control. The research is important because it may identify neural mechanisms by which
stress may prevent students from performing to their potential. This information may aid in effectively
developing approaches to minimize the negative impact of stress on cognitive performance. Additionally,
the proposed research will broaden the participation of underrepresented groups in scientific research, as
Rutgers-Newark is consistently rated as having the most diverse undergraduate population in the nation.
Furthermore, through an established program at Rutgers-Newark, local high school students from
underrepresented minority groups will assist with the proposed research.

The project combines physiological measurements of the stress hormone cortisol with functional
magnetic resonance imaging (fMRI) to investigate how psychosocial stress influences cognitive control
processes and task performance. We aim to determine the effects of the Trier Social Stress Test, a known
psychosocial stressor involving social-evaluative threat that reliably elevates cortisol release, on task
performance and brain network engagement during a Go/No-Go task. This task is ideal because it requires
cognitive control and sustained attention, and distraction leads to a suboptimal response. The project
combines levels of analysis to provide links between the cognitive, physiological, and neural effects of
stress. By investigating the relationship between psychosocial stress and the engagement of DMN and
CCN, this research will provide important insights into how factors other than intelligence, such as how a
potentially stressful event is experienced, drive the brain processes that determine cognitive performance
and academic achievement.